RIA: Recoverable Distributed Shared Memory Using Evolutionary Concurrent Checkpointing

The shared memory computation model provides an attractive alternative to the message passing model such that the techniques learned from parallel computations can be applied to distributed computation problems. In a distributed environment, node failures are more often than in a tightly-coupled multiprocessor system due to man-made downtime. The fault recovery issue should be dealt with in order to make the shared memory computation model feasible for distributed environments. The objectives of this project are (1) to develop a low overhead concurrent checkpointing scheme with a controllable checkpoint interval and no global synchronization; (2) to design a recoverable distributed shared memory system based on the new checkpointing scheme; (3) to build an experimental system to examine the engineering issues related to building such systems; (4) to evaluate different checkpointing schemes, with benchmark applications; and (5) to explore potential distributed applications, based on shared memory computations.